RUI: DNA Modification and Regulation over Patterned Hetercyst Differentiation

The cyanobacterium Anabaena grows on a source of fixed nitrogen as
filaments of seemingly indistinguishable cells, but when nitrogen is
removed from the medium, differentiated cells, heterocysts, appear within
one or two generation times at nearly regular intervals. This simple
pattern provides the opportunity for a deep understanding of pattern
formation in a multicellular organism. Evidence has accumulated that
favors a model in which pattern evolves in two stages: (a) nonrandom
initiation in groups of cells already predisposed to differentiate,
leading to a crude initial pattern, and (b) resolution of differentiating
groups by the action of a diffusible inhibitor, leading to a pattern of
isolated heterocysts. The position of a cell in its cell cycle may be a
factor that determines the ability of the cell to differentiate.

One way to test this idea is to perturb DNA replication and note how
heterocyst differentiation and spacing of heterocysts are affected. To
this end, three genes (dmnA, dmnB, and dmnC) from Anabaena, encoding
previously uncharacterized DNA modification enzymes, have been cloned.
Attempts to mutate dmnA indicate that the gene is essential for viability,
but even partial inactivation alters the heterocyst spacing pattern.
Mutation of dmnB yields a strain that is blocked in heterocyst
differentiation at a very early stage.

In order to examine the connection between DNA modification and
patterned heterocyst differentiation, two of the genes, dmnA and dmnB will
be conditionally expressed in Anabaena and the resulting mutants
characterized by genetic and biochemical means. Suppressor mutations of a
dmnB- mutant that enable the mutant to grow on N2 will be sought, hoping
to gain insight into the mechanism by which failure to modify DNA leads
to blockage of differentiation. Experiments also are aimed at testing
directly the connection between cell cycle and competence of a cell to
differentiate by monitoring cell division and differentiation in
individual cells within filaments.